Coordination of Nanotechnology Research Facilities

The National Nanotechnology Coordinated Infrastructure (NNCI) comprises 16 university sites and their partners, funded by the National Science Foundation starting from 2015-2024, to provide open access to nanoscale fabrication and characterization user facilities and staff expertise across the nation. The Coordination of Nanotechnology Research Facilities is designed to facilitate and provide continuity of the NNCI as it transitions to a new network, the National Quantum and Nanotechnology Infrastructure (NQNI). The goal of this proposed effort is to maintain a national network that catalyzes discovery in nanoscience and nanoengineering and helps transform these discoveries into technologies and products that address global grand challenges. This objective is enabled through programs of user and site support, education and outreach, societal and ethical implications, computation, innovation and entrepreneurship, and helps provide linkages with other national and international nanotechnology resources. The activities of the NNCI contribute to the economic competitiveness of the U.S. in training a globally competitive workforce and in providing efficient access to resources for commercialization of nanotechnology. They also help to inform and educate the general public on fundamentals and advances of nanoscience and engineering and their societal impact.

The objective of the Coordination of Nanotechnology Research Facilities is to strengthen and accelerate discovery in nanoscale science and engineering throughout the US and world by supporting the continuing goals of the National Nanotechnology Coordinated Infrastructure (NNCI) to provide access to enabling infrastructure and staff expertise. The network working groups and research communities will be supported to solve common problems, share best practices, and address specific research areas. Workshops, symposia, and staff exchange activities will be funded to encourage collaboration. Development of materials, tools, and visualizations promoting and enabling wider use of simulation and education tools for the design, fabrication, and characterization in the area of nano/quantum technologies will be integrated into a tool-based curriculum hosted on the nanoHUB platform. The network’s impact beyond the US will be enhanced through participation in Global Nanolab, an international consortium of nanofabrication networks recently initiated and designed to leverage collective expertise, share best practices, and support technical staff interactions. The NNCI network will continue to contribute to the economic competitiveness of the US by training a globally competitive workforce as well as innovators and entrepreneurs skilled in translating nano-enabled technologies for societal impact. The undergraduate student, graduate student, and industry users of the research facilities achieve skills in the techniques of nanoscale science and engineering resulting in professionals from all backgrounds who are ready to meet the global workforce demands of the 21st century. The education and public outreach activities coordinated through the network encourage K-12 students to participate in the STEM pipeline and help create an informed citizenry that supports the safe development of nanotechnology. An annual REU Convocation will help summer research interns develop communication and presentation skills and network with their peers. In addition, societal and ethical implications workshops are designed to enable nanoscale scientists and engineers to interact with social scientists and policy experts so that the potential impacts new discoveries might have on society are considered.